Streaming Currents In Bone

This ia a ROW Research Planning application to study streaming currents in bone under stress. The PI is proposing preliminary experiments and finite element analysis. Understanding streaming currents may be important for bone remodeling and for possible eventual uses on engineering interventions to speed bone healing.